Significance of Vertical Tectonics in Convergent Margins; Evidence from Post-Accretion Strains and Uplift Rates

Convergent plate boundaries are one of the earth's most tectonically active regions and they have long been recognized as zones where continental margin or ocean floor sediments can be subducted to great depths. However much less has been learned about the processes responsible for uplift of these sediments in accretionary prism and continental collision zones. This project will test two end-member models concerning the mechanics of uplifting accretionary prisms: 1) underplating, where the accretionary prism provides a rigid backstop for the offscraped sediments or 2) penetrative deformation within the prism as sediments are accreted at the toe. These models will be tested by using the post-accretion strain and uplift history of the Kodiak accretionary complex, Kodiak Island, Alaska. Results will help clarify how uplift is accomplished in accretionary prisms.